Purchase of a 300 MHz NMR Spectrometer (Chemistry)

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to modern NMR spectroscopy is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Chemistry Department at the University of Florida to acquire a high-field NMR spectrometer. The areas of chemical research that will be enhanced by the acquisition include: 1) Kinetic and stereochemical effects of substituents in pericyclic reactions 2) Intramolecular ene reaction and lanthanide mediated cyclizations 3) Studies of metalloprotein derivatives and gas-phase inorganic chemistry 4) The effect of strain on the chemistry of ligands sigma and pi-bonded to transition metals 5) Structure elucidation and total synthesis of insect and plant related natural products and new synthetic methodology 6) Tridentate, polyfunctional ligands and catalysts for the polymerization of acyclic dienes.